Fourth International Conference on Nanochannels, Microchannels and Minichannels

ABSTRACT

National Science Foundation

Proposal Number: CTS-0612617
Principal Investigator: Kandlikar, Satish G.
Affiliation: Rochester Institute of Technology
Proposal Title: Fourth International Conference on Nanochannels, Microchannels, and Minichannels

This award from The National Science Foundation will provide partial funding to support the Fourth International Conference on Nanochannels, Microchannels, and Minichannels, June 19-21, 2006 in Limerick, Ireland. The grant will provide partial travel stipends to 10 full delegates and 15 student delegates to facilitate their participation in the conference. With respect to intellectual merit, the conference is an important international forum for researchers from a broad cross-section of engineering, science, and medical disciplines who are working on fundamentals and applications of flow and transport in small-scale internal flows. Some of the current topics to be featured in the conference are effects of nanoparticles on transport processes, surface tension effects at small scales, multiphase flows in small channels, novel medical diagnostic and drug delivery devices, and microchannel flows in energy devices. All of these topics are related to core priority areas within the Thermal Transport and Thermal Processing Program of the NSF, the funding program. The conference will have many broader impacts by providing a forum for interaction and dissemination of recent research, as well as by providing special opportunities for the participation of a diverse group of students and academic researchers.